Fluorescence-Based Diagnostic of Iron Limitation for Analysis of Natural Phytoplankton Communities

The overall objective of this project is to investigate iron limitation in marine phytoplankton using the newly discovered fluorescence diagnostic technique. The project encompasses both laboratory and field components. The laboratory studies are aimed at resolving the physiological mechanism(s) for the fluorescence diagnostic of iron limitation and testing for its expression across major phytoplankton taxonomic divisions. These studies are based on continuous culture experiments and will include measurements of. (1) variable fluorescence parameters, (2) fluorescence emission spectra, (3) picosecond fluorescence lifetimes, and (4) the stoichiometric composition of the photosystems. The laboratory studies will address the following questions:

(1) Does the fluorescence diagnostic result from an effect of iron limitation on the fluorescence signature of state transitions or the back-transfer of electrons from a highly reduced plastoquinone pool to the primary acceptor on Photosystem II?

(2) Is the fluorescence diagnostic equally expressed in all taxonomic divisions under iron limiting conditions or is it restricted to prokaryotic photoautotrophs?

The modest field component will be conducted to explore the utility of this technique in nature.